21st Annual International Symposium on Computer Architecture, Chicago, Illinois

This is an attendance and travel grant for the 21st Annual International Symposium on Computer Architecture on April 18-21 in Chicago, Illinois. It is co-sponsored by the Association for Computing Machinery and the IEEE. The Symposium, through a combination of invited talks, panel sessions, tutorials, workshops and refereed paper presentations, continues to serve the various needs of the computer architecture research community. It is an important conference in the computer architecture area. This grant provided support to help twenty graduate students attend the symposium.